Mathematical Sciences: Applications of Complex Analytic Geometry

The principal investigator will use methods of complex analytic geometry to investigate the relationship between stable holomorphic bundles on a compact complex surface and their blowups. The goal here is to distinguish differentiable structures on 4-manifolds. He will also study singularities of holomorphic vector bundles with bounded curvature on the complements of analytic sets. The proposed research will contribute to our understanding of the large-scale nature of the universe. This effort should help to answer the long time question left open by Einstein as to which four dimensional space-time comprises our universe.